Equipment for Research in Semiconductor Optoelectronics

WPCf 2 B J d | x MACNormal p 5 X ` h p x (# % '0* , .81 3 5@8 : < : } D 4 P T I. A. 1. a.(1)(a) i) a) T 0 * * . , US X ` h p x (# % '0* , .81 3 5@8 : < : } D 4 P 0 * * . , US , 3 ' 1 Z MACNormal Hall 9311044 The Institute of Optics at the University of Rochester will purchase a pulsed laser system and an electron beam deposition unit that will be dedicated to support r esearch in engineering. The equipment will be used for several research projects, including in particular: 1)the fabrication and investigation of circularly symmetric grating, surface emitting semiconductor lasers, 2) new materials and epitaxial structures for advanced semiconductor lasers, 3) epitaxial layer disordering in III V Heterostructures, and 4) avalanche processes in semiconductors and gain coupled semiconductor lasers for applications in optoelectronics. ***